Update of UNOLS Research Fleet Brochure

980796 Cullen This project will produce an update to the Publication "The Research Fleet: University-National Laboratory System" (UNOLS) which was published in 1991. That publication is out of date and current supplies are depleted. Text and design will be overseen by the UNOLS office, and Woods Hole Oceanographic Institution personnel will create the publication. This brochure will be used to provide information to science users, the public and funding agencies about the ships operated by UNOLS institutions. The Principle Investigator, Vicky Cullen is highly qualified to direct this project, having produced the current brochure. ***